Relativistic Dirac-Fock-Breit SCF and MBPT Calculations on Open-Shell Atoms (Physics)

This project will continue work in applying Gaussian basis set expansions to solving the Dirac-Fock equations, also incorporating the Breit interaction, for atoms of z = 20-50, including open shell species.